On the Nature and Consequences of Output Volatility

The purpose of this research is to analyze the link between the volatility in national output and productive efficiency. The first part of the project will focus on developing a theoretical general-equilibrium-model in which output volatility leads to lower economic growth. It has already been established that in a static setting that if firms must commit to technology, then higher variability in the economy can lead to lower output. This important result will be extended to a growth situation by formulating a model of endogenous growth with learning-by-doing. Support for the theoretical results will be provided by expanding on the preliminary empirical work which shows a strong negative relationship between the average and variance of real GNP growth. The second part of the project involves an empirical investigation of the theoretical models developed in part one, which will focus on a detailed study of plant-level data in the U.S. automobile industry. The data set, which has already been collected, contains detailed weekly plant-level data for approximately fifty assembly plants for the period 1972 to 1983. These data will be used to estimate the form of the cost function in order to understand the effect of output volatility on productive efficiency. This research is important because understanding the relationship between the characteristics of technology and output volatility remains central to the study of economic fluctuations. It is not clear for example whether firms dampen underlying volatility or magnify it. Also, it is very unclear as to what aspects of technology lead to such behavior and how output volatility affects productivity of the firm.